Causal Discovery from a Mixture of Experimental and Observational Data

Causal knowledge makes up much of what we know and want to know in science. The goal of this research is to develop and apply a unified method for representing and discovering causal relationships from a mixture of observational and experimental data. Probabilistic causal networks are being used as a representation of causality. Bayesian methods are being applied to learn probabilistic causal networks from data. A computer implementation of the discovery method is being investigated empirically using data generated from existing causal models that were constructed by human experts. The ability to use a mixture of observational and experimental data will expand considerably the scope of application of Bayesian causal modeling and discovery in science. http://www.cbmi.upmc.edu/~gfc/index.html/causal_discovery